Multigrid Methods for Meteorological Models

Numerical models are key tools for research in atmospheric science. The wide range of temporal and spatial scales that are involved in atmospheric motions presents a real challenge in terms of how these different scales are handled in a numerical model. An essential element of a successful modeling effort, whether in a research or an operational context, is the availability of computationally efficient numerical methods. Multigrid methods hold promise for overcoming of these numerical problems. Under previous NSF support, Professor Fulton investigated applications of multigrid methodology to a variety of atmospheric models. He now plans to extend his previous results to other areas and embark on some new applications. Specifically, he will pursue studies of (1) multigrid solvers for balanced models, (2) adaptive mesh refinement in models of hurricanes and fronts, and (3) multigrid methodology for spectral models, both limited area and global.